Chondritic Meteorites: Nebular Formation Processes and Locales

The primary goal of this project is to learn more about the history of the solar nebula by studying the chondrite meteorites. During the next two years the PIs will: examine new chondrite finds related to the Renazzo and Al Rais carbonaceous chondrites, continue study of the new CK group of carbonaceous chondrites, analyze some CI-like carbonaceous chondrites and search for other seemingly exotic chondrites, return to the L/LL chondrites and search for evidence that will resolve the L/LL chondrites from the LL group. About 30 elements will be analyzed in the PI's lab using high precision neutron activation analysis. This should provide important data which will contribute to a better understanding of the formation of the solar system.